Minority Graduate Research Honorable Mention - Sharynn Hall

This special award will give Ph.D. student Sharynn Hall additional flexibility in pursuing her graduate studies and research initiation in microbial genetics. This award will strengthen minority research participation in this area.